Optimization of Information Technologies in a Complex High-Risk Organization

This research investigates the relationships between information technology that supports complex organizational work in critical ways, and the ensuing organizational and human reliability and risk in the workplace---in this case hospital emergency rooms. The project focuses on identifying organizational-level information and information technology structures and factors that impact the level and types of errors and risks in dynamic workplaces. The project will (1) model actual technology-supported work systems from the standpoint of understanding the role of information technology (IT) in system and human reliability, and examine the models to understand potential points of IT-related risk and breakdown in the work system; (2) use the model to predict role of IT in contributing to errors and adverse outcomes; (3) pursue documentation of patient information as the locus of organizational work, by examining critical points in this system, and consider ways that the technology interacts with the human work system, relating this to the model and rationalizing it; (4) refine the model iteratively; and (5) work toward preliminary tests of the models that examine single articulation points I the work structures and vary aspects of the support technology in pilot experiments.